SBIR Phase I: In-pixel, real-time neural digitizer to restore connectivity in spinal cord injuries

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project is to improve the quality of life for people who suffer from debilitating forms of paralysis by restoring their lost functionality. There are 5.4 million people in the United States who suffer from paralysis. Not only do these patients suffer from the physical pain that comes with their condition but also, they are afflicted by financial and psychological burdens. The prostheses that are being used today are either passive and affordable or active and unaffordable for the majority of these patients. Active prostheses represent the forefront of brain-computer interfaces development. Current protheses suffer from drawbacks such as constant patient training, the necessity for bulky skin electrodes, variability in electrode positioning, and limited efficacy when worn and operated by the patients themselves. This device first targets incomplete paralysis by functioning as a neural relay station that bridges the disconnect between the healthy neural section above and below the site of injury.

This Small Business Innovation Research (SBIR) Phase I project seeks to overcome the limitations of current brain-computer interfaces to not only restore functionality in people with paralysis, but to recreate a real-time, seamless experience for them. Most available neural probes rely on highly invasive, sharp shanks to penetrate neural tissue. These probes cause considerable inflammation, ultimately leading to device failure. Current devices detect signals extracellularly which leads to a low signal-to-noise ratio making signal extraction very challenging. This project will improve brain-computer interfaces by introducing nanoarchitecture to the sensing electrode in order to achieve intracellular sensing. This sensing dramatically increases the signal-to-noise ratio making signal extraction considerably simpler. This device is based on an active pixel complementary metal oxide semiconductor architecture which will turn neural signals into a string of ones and zeros making signal extraction considerably simpler. This process will minimize the patient-interface training time. This project will fabricate three-dimensional, nano-architected sensing electrodes with high-aspect ratio and high-density nanoneedles, mimicking the natural neural cell environment. The nanoneedles spontaneously penetrate neurons, achieve superior intracellular recording, and reduce chronic inflammation to promote device longevity.